Conference: 22nd International Congress on High Speed Photography & Photonics; Santa Fe, New Mexico; October 27 - November 1, l996

9618471 Paisley This is a grant from NSF for support of the conference: "22nd International Congress on High Speed Photography and Photonics" which will be held in Santa Fe, New Mexico, on October 27-November 1, l996. Funds from NSF will be used to partially support costs of travel, accommodations and registration fees for graduate students and post-doctoral fellows from U.S. Universities to attend the conference. The International Congress on High Speed Photography and Photonics is the primary international forum for exchange of the latest knowledge about high speed photography and photonics. NSF, due to its involvement in both education and in fundamental research in photonics and imaging, supports this grant to enable graduate students and post-doctoral fellows to attend the 22nd International Congress on High Speed Photography and Photonics. ***